New variational computational methods for modeling dual spaces of distributions, decomposition of functions, oscillations, and inverse problems in image analysis

The investigators will study new computational techniques with
applications to inverse problems and image analysis. They will seek new
methods that combine variational arguments with ideas from computational
harmonic analysis and partial differential equations in order to overcome
limitations of existing methods. The research will have three objectives:
propose new models for cartoon and texture separation in images by working
with spaces of distributions; propose completely new techniques for
multiscale hierarchical decomposition of images; propose efficient
algorithms for solving inverse problems.

From the proposed research and educational program, computational
mathematics, image processing, as well as more general areas of science and
engineering will benefit. Applications include image analysis, medical
imaging, satellite imaging, material science, and terrain data analysis,
surveillance and inverse problems.